Travel Grants for Graduate DPF Students for APS Meeting; Tampa, FL; April 16-19, 2005

The proposal is a request for support to help cover the costs of travel for graduate students in the Division of Particles and Fields (DPF) to attend the April 2005 General American Physical Society (APS) meeting. It will take place from April 16-19, 2005 in Tampa, FL. The funds will be used to help support graduate students who are APS/DPF student members who otherwise could not afford to attend the meeting.